NSF Young Scholars - Engineering Ahead

The University of Kentucky College of Engineering will conduct a two- week residential summer program for twenty high school seniors to introduce them to the engineering profession and to encourage them to pursue careers in engineering fields. Participants will be selected from Kentucky residents on the basis of an application to include a high school transcript, an essay, and one letter of recommendation. Young women, minority, and handicapped students are especially encouraged to apply. The program will consist of discussion sessions, laboratory experiences, field trips, and lectures to thoroughly acquaint the students with several different engineering disciplines, career opportunities, required educational preparation, and ethical practices of the engineering profession. Interdisciplinary programs in biomedical engineering and pharmaceutical engineering will also be introduced to the participants. Staffing will include faculty, staff, graduate students, and undergraduate students from the College of Engineering. Follow-up activities will include returning to campus for seminar presentations of student projects in late February, 1989; community recognition for program participation; and continuous communication between the students and the University.